Spectrometer Console for a 600 MHz NMR System

The console of the 600 MHz NMR spectrometer at the NMR Shared Facility of the University of Alabama at Birmingham will be upgraded to provide state-of-the-art capabilities to the participating investigators. This upgrade will overcome the many limitations of the existing system and significantly enhance the programs of participating investigators in their research on protein and nucleic acid structures and interactions.